Hierarchical Matrices in Computational Fluid Dynamics

Project Abstract: Hierarchical Matrices in Computational Fluid Dynamics

The numerical simulation of complex physical, biological, or chemical
systems typically requires the efficient solution of huge linear systems of
equations which consumes the majority (70% - 90%) of the overall simulation
time. In this project, we will develop, analyse and implement a novel
iterative solver based on so-called hierarchical matrix techniques. We will 1) adapt
hierarchical matrices to provide an efficient and robust solver for
convection-dominant problems, 2) analyse theoretical properties, 3) implement the
proposed algorithms and perform numerical tests in comparison with other state-of-art
techniques, and 4) study possible further applications for hierarchical
matrices.

This novel approach of hierarchical matrices is of significant importance
within its own field of numerical analysis and also with respect to practical
large-scale computing challenges that scientists are currently facing.
Examples for applications include models for magnetic fusion, electrochemical
processes, the growth of ceramic nanostructures, or groundwater modeling. Hierarchical
matrices have first been introduced in 1998, and the encouraging results that
have been obtained for well-conditioned problems motivate the application of
hierarchical matrix techniques in efficient solvers for these notoriously hard
to solve systems of equations that occur in Computational Fluid Dynamics.